Distributed Visualization in Network-Based Environments

Because so much of SDSC's user community is not locally resident, a challenge for the center is to provide visualization tools for these remote users. This need will be addressed by developing visualization tools for the general case of network-based environments. Thus, the software tools that that will be developed will be structured to use network communications (e.g., sockets and remote procedures calls) as the method of communication between a computer and an interactive graphics display.